Connecting the Past with the Future: Women in Mathematics and Science

This three-year project will create six hour-long, interactive broadcasts for junior high school students which are focused on the contributions of females in the development and advancement of mathematics and science. Students will see male and female role models in their work place, learn about contemporary careers and historical contributions, and participate in related mathematics activities before and after the broadcast. Following the broadcasts, the video materials will be professionally edited and widely distributed for further use in schools. Dissemination agreements made at the time of the award included the McDonnell Douglas Foundation, Women and Mathematics Education, Society of Women Engineers, and Western Illinois University Mathematics Resource Office and the Women's Center. Accompanying print materials will be developed for teacher and student use. The materials will represent significant topics that have extended use in the classroom. Teachers will receive greater background information on the role models and additional teaching ideas. The formative evaluation will monitor the development and quality of the broadcasts/videotapes and their effectiveness with students. The summative evaluation will evaluate data on course selection, career plans, and recall of information about female role models. //